Access to SURAnet for Howard University

Howard University has several researchers who would benefit from access to supercomputers and access to other researchers connected to the NSFNET. The campus will be connected with high speed lines (1.5 million bits per second) to SURAnet, a mid-level network which provides connectivity to the National Science Foundation Network, NSFNET, also through high speed communication lines. The proposal submitted by the Departments of Electrical Engineering and Systems and Computer Science also has the support of the University Computing Services (UCS). These groups are working together on the future development of a high capacity University.wide network. The need for high speed computer links is initially focussed on providing network speeds suitable for access to supercomputers for current and future demands of university researchers. Support is requested for communications equipment, communication lines, and partial defrayment of SURAnet membership fees.